Mathematical Sciences: Finite Model Theory & Complexity of Boolean Formulas

Woods intends to find theorems giving for any first order sentence f the existence of approximations with "regular" structure to the set of all models of f with universe 1,2,..., n . (Additional symbols with fixed interpretations may be allowed to appear in f.) Woods will obtain these by analyzing the truth tables of Boolean formulas of restricted logical complexity and possibly by other methods, e.g. p-complete sentences. He already has a result of this nature in the case of purely relational sentences and hopes to strengthen it, and to obtain analogous results for the case where function symbols are also permitted. His plan is then to apply these to obtain independence results concerning the pigeon hole principle in the presence of bounded formula induction, and to the study of hierarchy problems for spectra or generalized spectra.